Electroactive Polymers

The synthesis and properties of two classes of electroactive polymers will be carried out; in both cases the synthesis and processing represent chemistry and processing techniques that are somewhat novel. The first type of electroactive polymer, synthesized by the oxidative coupling of 2,5-diethynylthiophenes and containing thiophene rings connected by 1,3-diyne units, could be fabricated into a highly oriented film because of its rod-like structure and facile processability. This polymer should be conductive, possesses the structural features necessary for transformation into an intrinsically conductive material, and conversion thermally, chemically, or photochemically into unique structures that could exhibit a variety of electroacitve properties. The second class of polymer, containing a conjugated donor- acceptor unit designed to exhibit efficient second harmonic generation, can be synthesized by the polymerization of an ordered monomer assembly. This assembly is achieved by poling a non-racemic chiral monomer (ferroelectric monomer) ia a smectic C phase and then effecting the polymerization through radical or cationic initiation. The synthesis of these materials should ultimately allow the fabrication of various devices with improved electronic and computer speed and capacity.